Potential Role of Phosphoinostitides in the Actions of Nerve Growth Factor

Nerve growth factor (NGF) is essential for development and survival of sympathetic and sensory neurons in the peripheral nervous system. In PC12 cells, NGF stimulates the differentiation of the cells into sympathetic-like neurons. Previous studies have shown that NGF stimulates the hydrolysis of phosphoinositides in PC12 cells by a phospholipase C-mediated reaction. This hydrolytic reaction occurs with a time course and dose-dependence that is consistent with the hypothesis that phosphoinositides may play a role in the mechanism of action of NGF. To analyze the role of phosphoinositide hydrolysis in the actions of NGF, the research plan is divided into three sections: 1) The effect of NGF on the formation of inositol phosphates, and DAG, and release of arachidonic acid will be examined to determine the identity of potential second messengers in the action of NGF. 2) To explore the role of phosphoinositide hydrolysis in differentiation of PC12 cells, the metabolism of phosphoinositides induced by fibroblast growth factor, another differentiating factor, or by NGF in NGF-primed cells will be examined. 3) The phosphoinositide metabolism in adrenal chromaffin cells from neonatal rats will be assessed to determine whether NGF-induced phosphoinositide hydrolysis occurs in NGF- sensitive nonneoplastic cells.